MRI: Acquisition of a Spectrum-Spanning (UV-NIR) Raman-Atomic Force Microspectrometric System for Submicron 3-D Chemical Mapping of Cellular, Natural and Synthetic Materials

The PIs request funding to acquire a spectrum-spanning (UV-NIR) raman-atomic force microspectrometric system for submicron 3-D chemical mapping of cellular, natural and synthetic materials. This instrument enables 3-D mapping of topology and chemical functional groups across surfaces, and in and around cells, as well as any other particle. The instrumentation will be used for analyses of single cells, aerosols, surfaces, biofilms, coatings, and both natural and novel synthetic materials. It will be used for projects in marine, atmospheric, environmental, biological, chemical, and materials sciences, and biomedical engineering.

Broader Impacts:

The instrumentation will benefit a broad portfolio of research fields including ocean and atmospheric sciences, material science, and medical science. The research projects have important applications toward understanding global geochemical cycling, atmospheric aerosol physics, materials development, materials degradation, and medicine. The training of students at all educational levels appears guaranteed by the track record of SBU in general, and the PIs.